U.S.-Western Europe Regional Seminar on Environmental Cognition and Assessment, Umea, Sweden, June 1988

This award will support the travel costs for 9 invited American scientists to attend a joint seminar on environmental cognition and assessment with scientists from Italy, Sweden, The Netherlands, and the United Kingdom. The seminar, organized by Dr. Gary W. Evans, University of California, Irvine, and Dr. Tommy Garling, University of Umea, Sweden, will be held in Umea from June 29 to July 2, 1988. The purpose of the seminar is to advance understanding of how humans comprehend and evaluate their physical environments. Three major topic areas of the seminar will be: (1) how aspects of the physical environment affect and interact with impressions, beliefs, and decisions about the environment, (2) how various models of psychological processes fit perception and cognition of environments, and (3) how people change their perceptions and cognitions of the environment in response to experience and aging. The seminar will also examine how people's goals and objectives for an environment affect their judgments about it. The seminar will provide a useful forum for interchanging ideas and will most likely lead to additional collaborative research between the American and foreign scientists. The participants are outstanding researchers who were chosen because they represent diverse areas in environmental psychology that use different models and approaches. Besides resolving scientific issues, the seminar will lead to knowledge with relevance to policy-making, planning, and design of human environments. The organizers plan to publish a book based on the seminar papers.